A Process-Oriented Approach to Component-Based Software Engineering

The focus of software engineering as we move towards the 21st Century is on Integrated Software Development. Large, industrial strength, software systems that students are increasingly required to work on involve systems integration, interpretability, component-based software, software architectures, and application frameworks. However, if we look at the software engineering course contents at universities, a number of the items listed above are not covered in an integrated manner. The few that are covered are dealt with in different courses, and no attempt is made to provide integration of these concepts in a cohesive and systematic manner. In this proposal, we focus on integrative software development through a cohesive two course sequence for sophomore and junior level CS students. There are two main innovative ideas that provide the underlying foundation for our proposal: 1. Incorporation of the "Component Based Software" development paradigm, and, 2. Incorporation of "Personal Software Process (PSP) " concepts in an integrated, cohesive software engineering course sequence. This project is the first to evolve the state of the art of software engineering instruction simultaneously along the two most important contemporary dimensions in software engineering. The PSP is particularly useful in attracting minorities to this sequence of SE courses. The results of our project will be of great interest to a wide audience in U.S. Universities looking to advance their instructional paradigms in the software engineering area.